CAS-SC Combining Synthesis, Computations, and Spectroscopy to Understand and Develop Selective Iron-Based Chemical Transformations

In this project, Professor Osvaldo Gutierrez of the Department of Chemistry and Biochemistry at the University of California Los Angeles (UCLA) will use computational and experimental tools to accelerate the development of new iron-based catalysts for chemical synthesis. Due to iron’s higher abundance in the earth’s crust, lower cost, less toxic properties, and geopolitical implications, iron is viewed as a sustainable and versatile transition metal to promote a wide range of chemical reactions. The goal of this work is to use state-of-the-art computational methods, chemical synthesis, and robotics to offer a blueprint for iron-based catalytic transformations. In addition to providing new catalysts for the advanced manufacturing of chemicals, this project will also provide training to numerous researchers at all levels to prepare for careers in STEM sectors of the US economy.

In this proposal, Professor Osvaldo Gutierrez and his group will use a mechanistic-driven, multi-technique approach to understand and unlock novel reactivity of ligated-iron catalysis with a focus on selective radical alkene dicarbofunctionalization reactions using underexplored sp3- and sp2-hybridized coupling partners. The hallmark of their research is the use of experiments and transition state calculations, in the same lab, to elucidate the mechanisms of these transformations with a focus on gaining insight into the factors (i.e., spin state, oxidation state, coordination, ligand, speciation, solvent, etc.) controlling reactivity and selectivity. To bolster these efforts, they routinely collaborate with experts in advanced spectroscopic methods (e.g., Mössbauer, single crystal x-ray diffraction (SCXRD), magnetic circular dichroism (MCD), and electronic paramagnetic resonance (EPR) etc.) to validate computational predictions and to refine computational models.